SBIR Phase I: A Penning Effect Concept for Low Level, Gaseous Hydrocarbon Detection at Atmospheric Pressure

This research focuses on the feasibility of applying the known effect that small concentrations of hydrocarbons have in air on its sparking potential in the development of a device that could be used as a detector of air pollution. This device could be of particular value in detecting a potential for explosition of the hydrocarbon-air mixture.